GOALI: Dynamic Tomography and Materials Simulations for Polymer Blends and H2 Storage Materials

Professors Les Butler and Randall Hall of Louisiana State University and co-PI Larry Simeral of Albemarle Corp. are supported by the Analytical and Surface Chemistry Program in the Division of Chemistry (with co-funding from the GOALI program in the Engineering Directorate) to develop tomographic and simulation-based approaches to real-time characterization of the motion of small molecules through glasses. Specific applications address flame retardants and hydrogen storage materials. The work entails a partnership with Albermarle Corporation in a GOALI context.

Derived advances could have revolutionary impact on sustainable industrial chemistry. In addition to these impacts in important areas of energy and materials safety, the work derives broad impact from development of training modules for enhanced utilization of visualization tools in research and learning.